I-Corps: Translation Potential of Low-Cost Passive Radio Frequency Identification Tags

This I-Corps project is based on the translation from lab to market of low-cost passive radio frequency identification (RFID) tags. The tags track assets commonly used in firefighting such as hand tools or equipment within a few meters accuracy from a reader mounted on a mobile platform. During emergency situations such as wildfires, this technology tracks hundreds to thousands of individual items in a cost-effective way by using inexpensive, passive RFID tags. The commercialization of this solution has the potential to benefit the society by enabling better real-time situational awareness and better emergency response to more effectively.

This I-Corps project utilizes experiential learning coupled with a first-hand investigation of the industry ecosystem to assess the translation potential of the technology. Passive radio frequency identification (RFID) tags are used to track individual items to within a couple of meters. This solution consists of novel machine learning algorithms used for identification that are capable of performing in a variety of forested environments. This solution is cost-effective and efficient, as RFID tags are inexpensive, do not require power, operate on the backscatter principle utilizing energy emitted by a nearby reader device, and do not require maintenance. The RFID tags provide a considerable advantage over conventional wireless technologies. The benefits of this approach include a reduction in the overall costs involved in tracking numerous assets and the development of a real-time situational awareness practical even during large fires.